Computational Astrophysics

The Principal Investigator plans to carry out a broad program of basic research in computational astrophysics to study the dynamics and evolution of galaxies. The program consists of a major project which has an underlying applied mathematical framework. This framework consists of a group of very powerful numerical techniques called piecewise-parabolic methods (PPM) which permit rapid and accurate solution of partial differential equations on supercomputers. An essential part of the overall program is the continued development of these powerful techniques driven by demanding applications on the world's largest and fastest computers. The research area to which these methods will be applied is the dynamics and evolution of galaxies. In this area, computer simulations offer the hope of dealing with the formidable difficulties presented by highly complex and nonlinear fluid flows. Stellar disks of galaxies are treated as fluids in a four-dimensional phase space. The goal of the work is to obtain new insights into the physical phenomena involved. Preliminary results demonstrate the promise of the proposed computational approach in realizing this goal. The new methods of calculating using supercomputers will let one make realistic models of galaxies. The eventual goal is to understand the physical processes taking place in galaxies. Dr. Woodward is a very capable scientist who has considerable expertise in using supercomputers. He will work closely with postdoctoral associates and graduate and undergraduate students in carrying out the research. New numerical codes and algorithms will be developed. It is important that new scientists be trained in supercomputer techniques.